Industry/University Cooperative Research Center for CoatingsResearch

The area of coating is of very high economic importance to this country and the need to increase the scientific knowledge base through research in this field is well known. Although coatings technology is evolving from an art to a science, much of today's coatings development is still done by empirical methods. The coating technologist relies less on firmly based scientific principles and more on his/her own judgement and/or data base of information of actual performance of coatings in the field. The data base may be large and sophisticated, but it is empirical. Empirical methods have yielded slow, steady progress but breakthroughs and innovations have been rare. Given the competitiveness of the world market, and the pressures to find pollution free coatings, a center directed toward scientific studies of coating is highly desirable. The establishment of a Industry/University Cooperative Research Center (I/UCRC) for Coatings Research is an ideal part of the solution of the problem. Eastern Michigan University proposes to form an I/UCRC for Coatings Research to attack the limits of coating technology. This award initiates an I/UCRC on Coatings Research at Eastern Michigan University. The initial research will focus in the areas of VOC reduction, corrosion protection, cross-linking, film mechanical properties and water-borne coatings. The Coatings Research Center has excellent research instrumentation and facilities, provided by grants from the State of Michigan of almost $1,000,000. Eight companies and the State of Michigan have agreed to provide $30,000 per year to support this research. The Program Manager recommends that Eastern Michigan be awarded $50,000 per year for a five year continuing grant. Near the end of each 12 month period the program manager and/or the Director of the Engineering Centers Division will review the progress of the center on a number of criteria, including the following: (1) the extent to which the university-industry interaction and collaboration is developing; (2) The extent to which the support base is expanding; (3) the extent to which a robust research program is developing. If the review is satisfactory, the program manager will recommend support of the next period of this continuing grant.